TEA Center: Center for Environmental Research and Innovation

The TCU Enterprise Advancement Centers (TEA Centers) strand allows TCUP institutions to capitalize on their investments in STEM instruction and research. A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the intellectual leadership of TCUP institutions so that they can address scientific or engineering needs or interests, specifically for their tribes or communities, or broadly for the Nation. This project, which establishes the Center for Environmental Research and Innovation (CERI) at White Earth Tribal and Community College (WETCC), aligns directly with that goal. This TEA Center directly impacts the economic strength of the White Earth Reservation and surrounding communities by fostering new STEM employment opportunities and, through multiple pathways, providing the high-skilled workforce required for those opportunities, in partnership with Tribal agencies and STEM professionals.

Through CERI, WETCC addresses critical food security and energy security challenges on the White Earth Reservation through interdisciplinary STEM research, education, entrepreneurship, and workforce development. Anchored by cutting-edge scientific research and a STEM business incubator, CERI empowers students, faculty, and community members to co-develop scalable, community-grounded solutions. CERI focuses on applied research in sustainable agriculture, alternative energy, and integrated food and energy systems, leveraging artificial intelligence to optimize data-driven decision-making and system performance, while fostering economic development through entrepreneurship training, workforce readiness programs, mentorship, and commercialization of innovations. CERI serves as a regional model in Northwest Minnesota for integrating scientific research, STEM education, and community-driven innovation.